Doctoral Dissertation Research in Sociology: From Borders to Barriers: Strategies of Occupational Closure and the Structure of Occupational Rewards

*** Grusky and Weeden 9711510 Social inequality in industrial society is generated by three processes: the differentiation of positions in the division of labor, the matching of positions to rewards, and the allocation of individuals to positions. Scholars of occupations explore the first component, stratification research examines the third, but the second has received little recent sociological attention. To address this gap in our knowledge, this dissertation project will analyze cross-sectional data at three points in time to separate the effects of occupational closure (or the ability of an occupation to limit membership, through professional associations, licensing, unionization or credential requirements) from the effects of human capital characteristics of occupation members (including education, experience, gender, and race). ***